Dissertation Research: Population Genetics, Microevolution of Black Lion Tamarins (Leontopithecus Chrysopygus) and the Molecular Systematics of Lion Tamarins

Black Lion Tamarins (Leontopithecus chrysopygus) are only found in the
Atlantic Forest of the Interior in the state of Sao Paulo, Brazil. This
species of New World primate exhibits a form of social organization that is
primarily monogamous and thus stands in sharp contrast to the social
systems of the majority of primate species. Additionally, this species is
currently distributed across an array of forest fragments of different
sizes, not unlike the postulated distributions of many New World primate
species at the height of the last glaciations of the Pleistocene. Finally,
the black lion tamarin is part of a species complex that includes three
other taxa, all of whom are interrelated in ways that are not entirely
clear.

The proposed research will allow the investigators to (1) determine the effects of a
monogamous social system on mating patterns and the dispersal of genetic
traits within populations; (2) examine the effects of a species' range
fragmentation on the dispersal and distribution of genetic traits among
populations; and (3) estimate the evolutionary relationships among the
different lion tamarins, with particular reference to the position of the
black lion tamarin. In accomplishing these three goals, we will expand our
knowledge of the genetic and evolutionary consequences of primate social
organization by adding a new system, monogamy, whose effects upon the
distribution of genetic traits and the dynamics of evolutionary genetic
change remain largely unknown.